Frictional Sliding and Rocking of Precariously Balanced Rocks Under Earthquake Excitation

There are several precariously balanced rocks (PBRs) in the western US
located on hill-sides and cliffs. Many of these rocks have evolved
naturally and have been in their present configuration for thousands of
years. Cosmogenic dating of the pedestal, rock and other surfaces on
the surrounding landscape has been conducted to estimate the amount
of time these rocks have remained precarious. Through analysis, if we
can establish the nature of ground shaking that would cause these
rocks to topple, we can confidently state that such motion could not
have occurred during the "precarious age" of the rock. Thus, these
rocks are effectively low-resolution strong motion seismoscopes that
provide strong statistical constraints on ground motion from historic
earthquakes in the region. Such information is critical for the
proper siting and designing of nuclear/chemical power plants and
waste storage facilities to protect them against plausible ground
shaking from long-term future earthquakes.

The goals of this research are: (i) to develop a fundamental
understanding of the mechanics of rocking and sliding of precariously
balanced rocks (PBRs) under earthquake excitation; (ii) to
characterize the sensitivity of the overturning of PBRs to ground
motion features; (iii) to use PBRs to help establish the veracity of
ground motion simulations; and (iv) to estimate the upper bounds of
seismic shaking intensity in a given region or a specific site,
perhaps where hazardous materials are handled (e.g., nuclear or
chemical waste storage facilities or plants). We plan to achieve the
project goals by combining recently developed 3-D imaging (Terrestrial
Laser Scanning) and image processing techniques with a recently
developed rigid body dynamics algorithm to create high-fidelity 3-D
models of existing precariously balanced rocks and the supporting
pedestals. The models will strive to mimic the physical condition of
contact to credibly capture the interplay of sliding and rocking when
the pedestal is shaken by 3-component ground excitation. The investigators propose
to validate the analysis algorithm using data from shake table tests
on regular blocks and irregular rocks. They intend to conduct
parametric analyses of several PBRs subjected to idealized waveform
excitation characterized by frequency, amplitude, and number of
cycles. This will help establish the toppling sensitivity of the
rocks to these ground motion features. Using these toppling analyses,
we plan to compute statistical bounds on the values of various ground
motion features from historical earthquakes that have occurred at the
sites of the PBRs. These results will not only help inform future
editions of the National Seismic Hazard maps but also help guide the
siting and design of critical nuclear and chemical facilities. In
addition, they plan to excite the PBRs with 3-component acceleration
histories predicted for these sites by seismic wave propagation
simulations of past earthquakes. If the synthetic excitation is found
to overturn the PBR models, it would point to shortcomings in the
ground motion simulation methodology. Alternately, the absence of
overturning would lend credibility to seismic wave propagation
simulations.